Collaborative Research: Comparative Investigation of Incipient Sex Chromosome Evolution in the genus Asparagus

While distinctive sex chromosomes are a conspicuous feature of the nuclei of diverse
organisms, the evolutionary processes responsible for the origins of separate genders
and sex chromosomes in animals, plants and fungi remain largely unknown. The
independent origin of separate sexes (that is, male individuals and female individuals) in
many flowering plant lineages provides biologists with an opportunity to investigate
various stages in the evolution of gender determination and sex chromosomes. For
example, separate sexes have evolved within the last two million years in the genus
Asparagus and the genes responsible for gender determination have been mapped to a
relatively small region on otherwise recombining chromosomes. PIs, Leebens-Mack
and Pires will sequence across the newly evolving female (proto-X) and male (proto-Y)
forms of this region in garden asparagus in order to test hypotheses concerning the
early evolution of incipient sex chromosomes and to identify candidate genes that may
be responsible for gender determination.
By investigating the mechanisms that promote repression of recombination between
genes influencing male and female function in flowering plants, the results from this
project will have implications for crop improvement and the fundamental processes that
shape genome structure. Undergraduate students will also be trained in genome
annotation and comparative genomics.